Parallel Algorithms for Synthesis and Test

This research is on developing circuit design and test algorithms that run on parallel computers. These include efficient, asynchronous, portable parallel algorithms for: (A) synthesis of combinational circuits; and (B) for test generation and fault simulation of combinational and sequential circuits. Algorithms are being written using an environment that makes it possible to port CAD applications across a wide range of MIMD machines. In addition they are designed to allow a maximum overlap of computation and communication. The algorithms are being tested on numerous parallel platforms.